Photofragmentation Dynamics (Physics)

This research program will (1) measure final state distributions characterizing photofragments following the absorption of sufficiently energetic photons to cause photoionization/photodissociation, and (2) relate these measurements to the dynamics of the photofragmentation process and hence to infer the nature of the potential surface(s) that mediate between initial and final states of atoms/small molecules. These final state distributions include translational energy, vibrational energy, rotational energy, fine structure distributions, angular distributions, and distributions of M states (alignment and orientation). For this purpose, two laser sources are employed, one to cause photofragmentation, the other to probe the final state distributions of the fragments by the techniques of polarization spectroscopy, Doppler spectroscopy, and laser induced fluorescence. Previous studies will be continued on the photodissociation dynamics of cyanogen iodide (ICN).